Department of Energy (DoE) Support of the National Center for Atmospheric Research Activities

This Cooperative Support Agreement to the NSF/UCAR Cooperative Agreement is to the National Center for Atmospheric Research funded by the Department of Energy.